Collaborative Research: Kr-86 as a Proxy for Barometric Pressure Variability and Movement of the SH Westerlies during the last Deglaciation

Brook 1543267

Approximately half of the human caused carbon dioxide emissions to the atmosphere are absorbed by the ocean, which reduces the amount of global warming associated with these emissions. Much of this carbon uptake occurs in the Southern Ocean around Antarctica, where water from the deep ocean comes to the surface. How much water "up-wells," and therefore how much carbon is absorbed, is believed to depend on the strength and location of the major westerly winds in the southern hemisphere. These wind patterns have been shifting southward in recent decades, and future changes could impact the global carbon cycle and promote the circulation of relatively warm water from the deep ocean on to the continental shelf, which contributes to enhanced Antarctic ice melt and sea level rise. Understanding of the westerly winds and their role in controlling atmospheric carbon dioxide levels and the circulation of ocean water is therefore very important. The work supported by this award will study past movement of the SH westerlies in response to natural climate variations. Of particular interest is the last deglaciation (20,000 to 10,000 years ago), when the global climate made a transition from an ice age climate to the current warm period. During this period, atmospheric carbon dioxide rose from about 180 ppm to 270 parts per million, and one leading hypothesis is that the rise in carbon dioxide was driven by a southward movement of the southern hemisphere westerlies. The broader impacts of the work include a perspective on past movement of the southern hemisphere westerlies and their link to atmospheric carbon dioxide, which could guide projections of future oceanic carbon dioxide uptake, with strong societal benefits; international collaboration with German scientists; training of a postdoctoral investigator; and outreach to public schools.

This project will investigate whether the abundance of a noble gas, krypton-86, trapped in Antarctic ice cores, records atmospheric pressure variability, and whether or not this pressure variability can be used to infer past movement of the Southern Hemisphere westerly winds. The rationale for the project is that models of air movement in the snow pack (firn) in Antarctica indicate that pressure variations drive air movement that disturbs the normal enrichment in krypton-86 caused by gravitational settling of gases. Calculations predict that the krypton-86 deviation from gravitational equilibrium reflects the magnitude of pressure variations. In turn, atmospheric data show that pressure variability over Antarctica is linked to the position of the southern hemisphere westerly winds. Preliminary data from the West Antarctic Ice Sheet (WAIS) Divide ice core show a large excursion in krypton-86 during the transition from the last ice age to the current warm period. The investigators will perform krypton-86 analysis on ice core and firn air samples to establish whether the Kr-86 deviation is linked to pressure variability, refine the record of krypton isotopes from the WAIS Divide ice core, investigate the role of pressure variability in firn air transport using firn air models, and investigate how barometric pressure variability in Antarctica is linked to the position/strength of the SH westerlies in past and present climates.